Workshop on Multisensor Integration in Manufacturing Automation

A workshop is planned to identify promising research directions in the area of integration of sensor information in automated systems. The meeting will bring together many of the leading workers in this domain, producing a distillation of their combined views, stimulating interaction among them, and aiding in the development of an identifiable research community in multisensor systems.